Investigations in Programmable Systolic Architectures

This is a project to continue work on the B-SYS system for biological sequence comparison. This is a linear array of chips, each chip containing 47 small processors that can do fixed point arithmetic and the character comparisons needed for sequence comparison. Previous work has resulted in a 10-chip prototype. During this project, the principal investigator is expanding the prototype, developing software to aid in programming and debugging the array, and studying testability and fault-tolerance issues. The goal is to produce an inexpensive coprocessor with supercomputer performance on this problem.